Collaborative Planning and Research Exploration: Digital Restoration of Asian Antiquities

This award provides funding to support two planning visits to Taiwan and preliminary data acquisition and testing of new visualization methods with the National Palace Museum (NPM) in Taipei. The purpose of the project is to develop a collaborative research project on the application of advanced visualization and digitization techniques to the examination and representation of otherwise inaccessible antiquities and documents. The PI has been developing various methods for non-invasive analysis, including micro-CT, multi-spectral imaging, and registered shape acquisition and shape restoration, that allow inspection and display of historical materials that are otherwise too fragile to handle. This planning project will demonstrate the utility of the new techniques for a broad range of research applications.

This planning visit gives access to the large repository of unique and priceless objects and documents in the Museum. The project offers benefits in two respects: First, the technology that is being developed and demonstrated opens up opportunities for better analysis in a variety of fields from archeology and anthropology to physics and materials science. At the same time the new information that is revealed from the exceptional collections at NPM provides a new window for exploration and study of the history of science and technology in ancient China. This capability provides an interesting demonstration of the benefits of science to the public, both in Taiwan and globally. The information revealed by the inspection of rare items will be available for both specialists and the public at large.